Superfluid 3He Application and Excited States

Non-Technical Abstract: This project identifies behaviors of a quantum fluid useful in building novel superconducting devices and in discovery of materials relevant to quantum information science and its applications. The broad aspiration is to provide information and understanding that might advance quantum computer technology. This project is specifically directed at study of the effects of surfaces on novel quantum materials, notably superconductors. Phenomena found on the surfaces are ubiquitous irrespective of the application, but their effects on the quantum behavior are not well understood. Experimental techniques involve magnetic resonance (NMR) and high frequency acoustics, thermal measurements and cryogenic methods will be used. Each of those components has a demonstrated important educational impact on students, several of whom have founded start-ups in close collaboration with senior university appointments at various other institutions.

Technical Abstract: Surfaces and defects in unconventional superconducting materials, including superfluid 3He, present an existential challenge. Their quantum order parameter structure involves quantization, symmetry breaking, and topology, affected by surfaces. Quantum surface states of the superfluid are relevant to odd-parity superconductors having topologically protected character important to the Quantum Information Science (QIS) project. In recent prior NSF supported work, unusually enhanced magnetic susceptibility in the superfluid B-phase was discovered for planar silica aerogel that harbor such surface states. These are Andreev bound states at surfaces achieved and controlled with strain. It is proposed to determine the thermodynamic free energy related to this enhancement applying an extended Ginzburg-Landau theory to interpret ongoing experiments. It has been predicted that oddparity superconductors, like superfluid 3He-A, should have a robust anomalous thermal Hall effect (ATHE) enhanced by disorder from Andreev surface bound states. Experimental validation of this theory for superfluid 3He will be sought, with implication for putative odd-parity superconductors, like UPt3 or UTe2.